International Travel Grant to Suport U.S. Invovement in HAZARDS-2002

Abstract
0213686, Harry Yeh, U. of Washington
"International Travel Grant to Support U.S. Involvement in HAZARDS-2002"

This action provides support for U.S. participation in the international symposium HAZARD-2002, to be held in Antalya, Turkey, October 2002.
The symposium is organized biennially by the Natural Hazards Society, and presents a wide range of state-of-the-art natural hazards mitigation strategies, from fundamental understanding of the phenomena to evacuation planning. The topics include meteorological hazards such as hurricanes, typhoons, cyclones, tornadoes, fires, droughts; geological hazards, including earthquakes, landslides, and volcanic eruptions; hydrological and marine hazards, for example tsunamis, storm surges, floods, sea-level rise, and marine biological hazards; and technological hazards, including air and water pollution. The participants supported by this award include key persons as well as junior members of the U.S. natural hazards research community. Their participation at this symposium is critical for fostering cooperative research efforts. Research in natural hazards, and in particular tsunami research, has become increasingly international in its focus. Strong international cooperation is necessary since tsunamis, for example, can affect not only the region near the source but also distant regions through propagation across oceans.
Findings from this symposium will be disseminated to U.S. researchers in natural hazards.